Mathematical Sciences Computing Research Environments

The Department of Mathematics at the Pennsylvania State University will purchase a computational server to be dedicated to the support of research in the mathematical sciences. Primary attributes of this server are fast floating point and integer performance, large main memory and swap space, and high quality color graphics. Particular research projects which are proposed are four in numerical solution of partial differential and fluid dynamics-fast solvers for the water wave equations, numerical study of mixed finite element methods, computation of free-surface flows, and multigrid and domain decomposition methods for large scale computations-and one in computational number theory based on the AXIOM symbolic manipulation package-symbolic manipulation in number theory and combinatorics.